Planning Grant for the Use of Digital Libraries in Undergraduate Learning in Science

Instructional methods in academe are shifting from a teacher-centered paradigm to a user-centered paradigm. Advances in networking, digital libraries, and digital media technology are making the World Wide Web an effective framework for supporting this type of active learning. This project will develop a set of prototype tools, processes, and an environment to provide preliminary answers to a set of questions that underly the design and implementation of a digital library for science, mathematics, and engineering education. In particular, we will develop, run, collect data from, and analyze one student-centered computer science course. This project builds on experience with the Networked Computer Science Technical Report Library (NCSTRL) and work at Old Dominion University to develop NCSTRL+.